Kostka polynomials and affine Kac-Moody algebras

The PI proposes to study the representation theory and combinatorics
underlying certain generalizations of Hall-Littlewood and Kostka-Foulkes
polynomials for affine (and more generally symmetrizable) Kac-Moody
algebras. Specifically, the PI wishes to study affine Kostka-Foulkes
polynomials from the perspectives of Cherednik-Macdonald theory,
q-hypergeometric series and positivity. The PI also hopes to
use the polynomials corresponding to arbitrary Kac-Moody algebras to
shed more light on representations of these poorly understood Lie
algebras.

Symmetric functions are multivariate polynomials which remain unchanged
when the variables are permuted. They admit a rich theory involving an
interplay of algebra, combinatorics and representation theory.
Hall-Littlewood polynomials are symmetric functions that depend on an
extra parameter and interpolate between two very important classes of
symmetric functions. The theory of Hall-Littlewood polynomials traces its
origins to works of Hall, Littlewood and later of Macdonald. These
polynomials occur naturally in diverse areas of mathematics including
algebra, geometry, representation theory, combinatorics and mathematical
physics. They have many important properties and applications.
The goal of the proposed research is to study the generalization of the
classical Hall-Littlewood polynomials to the case of infinite dimensional
(Kac-Moody) Lie algebras and to derive analogs of classical properties
in this general setting. The PI hopes to clarify the relation between the
generalizations of Hall-Littlewood polynomials on one hand and the
generalizations of the classical objects it is related to (such as
the ""double affine Hecke algebra"").